2007 Electrochemistry GRC - GOALI: Gordon Research Conference Activities to Stimulate University-Industry-Government Laboratory Partnerships and Increase Diversity in Science

This GOALI award enables participation by a significant number of female and underrepresented minority scientists in the 2007 Gordon Research Conference (GRC) on Electrochemistry that will be held in Ventura, CA, January 14 - 19, 2007. Additionally, this award provides support for two half-day 'mini-workshops', embedded within the GRC program structure, that focus on two important facets of the American Competitiveness Initiative (ACI), namely (1) partnerships among academia, industry, and national laboratories and (2) development of a diverse, well prepared workforce, and do so within the critical technology of fundamental and applied electrochemistry.

Broader impacts of this activity include seeding the development of (1) a diverse workforce in the electrochemical sciences and (2) new partnerships that capture sector synergy in multidisciplinary electrochemical sciences in pursuit of ACI goals.